Compiling for and Designing Next Generation Memory Systems

The most pressing obstacle to achieving high computer performance is
that CPUs compute faster than the computer can move data to the CPU.
Because programs usually have regular and repetitive accesses, current
computers cache recently accessed data in a hierarchy of fast, flat
inclusive memories to improve performance. Technology trends are
making the data delivery problem much worse and will force changes to
to memory design such as partitioned cache levels. We propose a rich
software/hardware interface to manage next generation caches. We
propose new compiler algorithms to translate programs to perform
better on this new hardware, and new hardware designs that enable the
compiler to inform the hardware of current and future data access
patterns. These new techniques will go well beyond the current
minimalist load and store architecture/compiler interface to achieve
high performance. The result will enable end users of computer systems
to solve their problems more quickly and easily. The research will
have broad impact on the design and implementation of software and
hardware cache architectures. It will add new and enhanced tools to
the compiler, tool, and simulation national research infrastructure.
This work will also train graduate students in advanced research.